The Development of Cognitive Skills to Support Inquiry Learning

Many of the kinds of inquiry activities that have become increasingly prevalent as
educational tools assume that certain basic understandings are in place, for example the
understanding that multiple variables may act simultaneously to codetermine an outcome.
Recent research, however, suggests instead that this and related forms of meta-level
understanding are hard-won cognitive achievements that require support if they are to
develop during the elementary and middle-school years and provide a needed foundation for
more advanced inquiry learning. The goal of the proposed project is to better understand
the basic cognitive skills that underlie inquiry learning and to examine how they develop.
As part of their science curriculum, middle-school students will engage in a 10-week
software-based inquiry curriculum under several different conditions offering different
kinds of cognitive support. Employing a microgenetic method, researchers will closely
observe development, maintenance and transfer of cognitive skills. The proposed work
stands to inform both the design and use of educational technology to support inquiry
learning, and in addition should help to provide a clearer conceptual base for teachers
regarding the cognitive goals of inquiry curricula. The project is situated at the
intersection of quadrant II and quadrant III in terms of the objectives identified in the
ROLE RFP.